Structural Studies of Defects, Disorder and Phase Transitions

The structural properties of a range of materials, including quasicrystals, fullerenes, and high-temperature superconductors will be investigated by x-ray and neutron diffraction experiments. The project will also include computer modelling and simulation of diffraction work, as well as theoretical collaborations in support of the project. The quasicrystal work will focus on alloys and will provide data on the nature of defects and disorder, including fluctuations in the tiling patterns invoked to interpret these materials. Dynamic structural properties of fullerenes will be investigated. A further project involves structural investigations using gazing angle x-ray scattering to investigate phase transitions in metallic alloys which are initiated at the surface. Such transformations include martensitic phase transitions among others.